SGER: Vertical Profiling of Ozone within the Planetary Boundary Layer at Summit, Greenland

This proposal seeks funds to investigate the vertical distribution of ozone, carbon monoxide, temperature, humidity, wind speed, wind direction, pressure throughout the atmospheric boundary layer at Summit Greenland in the summer of 2000. Cooperating programs are assessing the photochemical processes occurring in the snow pack which deplete ozone and increase the concentrations of other atmospheric contaminants. This SGER proposal would help in evaluating the relative importance of the snow pack processes by determining the concurrent distributions in the atmospheric boundary layer above the snow pack. At least 10 vertical profiles to altitudes of 2000 m above the snow surface will be conducted over a 2 week period in mid-summer.